Collaborative Research: CubeSat--Composition Variations in the Exosphere, Thermosphere, and Topside Ionosphere (EXOCUBE)

This project is for a 3U CubeSat mission named EXOCUBE to measure the densities of all significant neutral and ionized species in the upper atmosphere on a global scale. The project will provide the first in-situ global neutral density data in more than 25 years, including the first direct measurements of Hydrogen densities using the mass spectrometer technique. An important science objective for EXOCUBE is to provide observational constraints for physical models of the upper atmosphere. Additionally, the measurements will be used to test and validate newly developed experimental techniques to obtain neutral and ionized composition and densities from radar and optical observations. The EXOCUBE measurements will also be used for several immediate science investigations. Specific science questions to be addressed include: 1) the inter-hemispheric transport of Hydrogen and protons in the quiescent and storm-time exosphere, and 2) characterization of neutral atmospheric drivers in response to magnetic storms. Data for each of four neutral and ion species (O, He, H, N2, O+, He+, H+, and NO+) are gathered by a set of two Static Energy Angle Analyzers, one for Neutrals (NSEAA) and one for Ions (ISEAA), respectively. The instrument is a new design that has been developed recently through a collaboration between NASA and the Naval Research Laboratory. A third instrument, a Faraday cup, is included for calibration, reducing ion density uncertainties to approximately plus or minus 3%. The satellite will collect data in two modes. In 'patrol mode' the measurements will be made approximately every degree of longitude and in 'coordinated experimental mode' the measurements will be made every tenth of a longitude degree in conjunction with ground based radar and optical measurements. The satellite is to be launched into low Earth orbit with an inclination of greater than or equal to 45 degrees, passing over three current radar sites, and at least six optical Aeronomy sites.

The EXOCUBE project is a collaboration between Scientific Solutions Inc. (SSI), California Polytechnic State University (Cal Poly), and The University of Wisconsin (UW). Also partnering in the effort are NASA Goddard Space Flight Center, and SRI International. In addition, the project coordinates with existing NSF radar facilities and optical sites for targeted experiments during the satellite lifetime. The EXOCUBE dataset has broad utility, leading to long-awaited improvements in a wide range of physical and semi-empirical composition models for the upper atmosphere and to verification of radar and optical measurement techniques providing composition data. As such, the project will provide the foundation for a very large and diverse set of further aeronomy and space weather science investigations. Particularly, reliable knowledge of exospheric Hydrogen distribution is a crucial requirement for realistically modeling Total Electron Content, which is currently a very high priority space weather objective. Educational impacts of the project are extraordinary. The satellite bus and operating systems are designed and built by 20-40 students in the laboratories at Cal Poly, and payload integration is also performed by students at Cal Poly. Students at the University of Wisconsin are involved with instrument calibration and testing and with initial assessment of data integrity. Data formatting and archiving are also student led.